Backscatter Corrections to Wave Propagation

Understanding of how signals and other combinations of waves propagate through irregular media depends on our knowledge of the interaction of the waves with the medium. The direct or local interaction is well understood, but the cumulative effect upon a long propagation path is more complicated. For many purposes of signal evaluation it suffices to calculate the arrived signal only. To do so, the signal energy scattered in other directions is mostly neglected. In this work, the effect of the neglected energy is taken into account, as are -in particular- the ramifications for backscatter and signal attenuation. Signal attenuation cannot be properly accounted for without these corrections, backscatter in principle can obscure reflections from a desired target far into the propagation medium, and source strength can be severely underestimated when cumulative backscatter is ignored. The method of this work is based upon a recasting of the wave equation into two coupled equations for Forwards and Backwards waves, and upon useful approximations for decoupling the resulting equations for stochastic moments (averages of powers of the signal strength) from each other. Fundamental new results include calculations of the backscatter losses and provision of a basis for older, heuristic two- flux scattering models.